Earth Algebra To EarthMath: An Expansion And Dissemination Of The Methods Of Earth Algebra

9354647 Zumoff This project is broadening and disseminating the concept of Earth Algebra. Earth Algebra is an entry level college algebra course which incorporates the spirit of the NCTM Curriculum and Evaluation Standards for School Mathematics at the college level. The context of the course places mathematics in the center of one of the major current concerns of the world, i.e., environmental issues and global warming. In this project mathematicians at Kennesaw are developing and testing materials (EarthMath Studies) designed in the spirit of Earth Algebra which can be used in a wider range of courses. Specifically, the Earth Algebra concept is being expanded into two areas: precalculus, both algebra and trigonometry, and mathematics education courses as a tool for training preservice teachers. The EarthMath Studies are in the form of studies of environmental issues which involve modeling and analysis of real data, use of technology, group work, written and oral reports and student research. In addition to Kennesaw State College, seven institutions are testing and piloting the materials. The goals of the use of EarthMath materials are to improve students problem solving and decision making ability, to offer insight and increase interest in and appreciation of the role of mathematics in society, enhance the learning of the mathematical skills and concepts prerequisite to calculus, and to provide preservice teachers with a model of how the Standards can be implemented.